Gordon Research Conference, Polymers (West), January 7-12, 2007, Ventura, CA

Project Summary:
Proposal to the National Science Foundation Requesting Supplemental Travel
Funds
Gordon Research Conference, Polymers (West), January 7-12, 2007, Ventura, CA
Jimmy Mays, Chair
Darrin Pochan, Vice-Chair
The Polymers (West) Gordon Research Conference (GRC) seeks to supplement the
available funds for travel support to enhance participation of post doctoral and senior
graduate students at this meeting. This request is for $3,000 for supporting
approximately 6 supplemental travel packages at approximately $500/person. Funding
requests by junior faculty will also be considered provided they can demonstrate no other
source of support for travel to the conference.
Technical Merit: The technical merit of this proposal is to facilitate enhanced
participation of young polymer scientists in a Gordon Conference that addresses several
key areas at the frontiers of polymer science and engineering. The invited speakers are
internationally known, world class experts in their respective areas of polymer chemistry,
physics and engineering, as well as emerging young stars. Having such distinguished
leading experts participate as speakers and discussion leaders is critical to assuring that
the GRC is highly successful. Another criterion that is viewed as an important measure
of the success of a GRC is attendance and active participation of young researchers. For
many of us, including the Chair and Co-Chair of this conference, early career attendance
at GRCs provided scientific stimulation, development of professional relationships, and
collaborations with other scientists that have been important in our professional
development. Our motivation for the present request is to give as many young polymer
scientists as possible the opportunity to experience their first GRC in Ventura next
January. NSF funding is critical to achieving this goal.
Broader Impact: The broader impact lies in the cultivation and development of
tomorrow's leaders in the polymer field and related interdisciplinary fields and to further
diversity in the scientific force performing this interdisciplinary research. In keeping
with the past tradition of the Polymers (West) GRC, the Programmatic Themes of this
year's conference cover a range of important and timely topics spanning the range from
polymer synthesis to polymer physics and engineering, including industrial trends in
polymer science. These programmatic themes are Bioactive Polymers, Controlled
Polymer Architectures, Polymers for Microelectronics and Optics, Block Copolymers,
Nanoparticles and Nanotechnology, Bio-Rheology and Gels, Polymers for Energy Needs.
Finally, a new Graduate Research Seminar meeting will be held the weekend prior to the
full Gordon Research Conference that will be fully organized, run, and attended by
graduate students and post-doctoral researchers chosen by Mays and Pochan. This will
certainly lead to increased participation of younger researchers in the interdisciplinary
field of polymer science and engineering.